Modern Infrared Spectrophotometry in the Undergraduate Laboratories

This project has provided students with experience in classical and modern techniques of infrared spectroscopy through frequent and varied use of a modern FT-IR spectrophotometer. The department purchased a Perking Elmer 1650 FT-IR with a disk drive, plotter, diffuse reflectance and variable angle specular reflectance accessories and a Sadtler IR library. Students in general chemistry encounter the FT-IR in a demonstration setting. The instrument receives frequent use in organic chemistry where the students are introduced to instrument operation and spectral comparison. Several experiments require the capabilities of the FT-IR, rather than a conventional, instrument. Students in a polymer chemistry laboratory course take advantage of the reflectance accessories. Use in analytical chemistry emphasizes small sample size capability, diffuse reflectance and Fourier Transform theory. Physical chemistry uses the FT-IR to obtain some of the spectra needed to interpret rotational-vibrational spectra of HCl. Biochemistry uses the instrument as an aid in isolation and identification of small biomolecules. Undergraduate research utilizes the instrument when it is available and appropriate to the project. This project allows students significantly more experience with infrared spectroscopy because analysis time is much less and the capabilities are much greater. Students gain experience in modern infrared spectroscopy techniques such as diffuse and specular reflectance, micro analysis and computer based libraries. The use of a Fourier transform instrument enhances understanding of this powerful tool. The institution contributed to the project in an amount equal to the NSF funds.